Late Cretaceous to Paleocene Depositional Systems, Paleoclimate, and Strike-Slip Basin Development, Denali Fault System, Alaska

9406078 Ridgway PI will investigate the Cantwell Basin strata in Alaska, addressing questions of depositional systems, basin development and paleoclimate. Strata in the basin may preserve the Cretaceous- Tertiary boundary, as well, offering opportunities to investigate fossil plant community changes at this time in a high-latitude basin. Analysis of the Cantwell Basin will be a key step in developing a regionally integrated data base for strike-slip basins along the Denali fault system.